Efficient Lossy Data Compression Via Statistical Model Selection

This research develops a novel framework for the design and better
understanding of data compression algorithms. This framework facilitates
the use of ideas and techniques from statistics in order to:
(a) Design efficient practical algorithms for specific applications;
(b) Precisely characterize the performance of such algorithms.
These algorithms provide easily implementable, high-compression methods.
Their construction is done in three stages: A precise correspondence is
first established between data compression algorithms and statistical
models. In the second stage, statistical techniques are applied to
identify a suitable "model" for the data, and in the third stage the
selected model is turned into a practical algorithm. Virtually all of the
algorithms that are currently used in compression applications can be
incorporated into this framework. In view of the tremendous practical
importance of the basic problem (lossy data compression), especially in
the area of multimedia, even modest advances can have a strong impact.

Using ideas and techniques from the area of adaptive statistical model-
selection, this study develops practical algorithms and attempts to
advance theoretical understanding of the fundamental issues involved
in lossy data compression, by investigating the following basic questions:
1. What are the fundamental limits of performance (in terms of redundancy
and complexity), for compression with finite amounts of data? What is
the best achievable rate at which optimality can be reached using
reasonable computational resources?
2. How can the trade-off between implementation complexity and compression
performance be balanced in practice?
3. What is the natural _lossy_ analog of the well-known correspondence
between algorithms and codebooks in lossless compression, and how can
model-selection be employed to construct practical algorithms?
On the side of applications, the primary emphasis is on adaptive methods
that can be implemented in real-time systems, and which are based on
concrete theoretical guidelines. These will provide low-complexity,
universal algorithms. In terms of the theory, the focus is on determining
the natural mathematical framework, within which the above issues can
be analyzed. This development builds on recent work in information
theory, centered around a natural "lossy" generalization of the
Asymptotic Equipartition Property and its refinements.